Haystack Young Scholars Program -- Early Alert Initiative

9353895 Salah Massachusetts Institute of Technology (MIT) seeks to initiate a three-week summer, commuter, Young Scholars program with extensive follow-up activities during the academic year for 48 students entering grades 8 and 9. The students will engage in classroom discussions, group activities, research projects, and field trips from three different disciplines: astronomy, physics, and mathematics. The program activities will apply physics and mathematics to experimental observations and studies of astronomical sources of radio emission; measurements of distances, velocities and vectors, analysis of plate motion data and studies of earthquakes; and investigations of the earth's atmosphere, its variations and human effects on the environment. Each student will have an opportunity to work with a scientist or mathematician who will serve as a mentor.